Data Base Support for Expert Systems (Computer and Information Science)

This research suggests enhancements to relational database systems which will allow them to effectively support expert system applications with a large knowledge base and/or database. The basic premise of this research is that relational database systems (with some modest extensions) may offer superior performance and ease of expert system constructions in some applications. These applications are characterized by a very large knowledge base or database. The study investigates extensions to relational database systems which will facilitate their application in such environments. Research is performed on how to optimize such an extended relational system so it will be able to offer superior performance compared to other programming environments in which one might construct large expert systems.